The Role of Zeste White 3 Kinase in Wg Signaling

Wingless (Wg) is a member of the Wnt family of conserved secreted
growth factors which are essential for the normal growth and
differentiation of both invertebrates and vertebrates. A common signaling
pathway has been identified for both Wg and Wnt signaling. One key
component of the signaling pathway is Zeste White 3 (Zw3), the Drosophila
homolog of Glycogen Synthase Kinase 3 (GSK-3), a serine threonine protein
kinase, which acts antagonistically to Wg. It has been suggested that Wg
signaling is mediated by inactivation of Zw3 kinase. The long term goal of
this proposal is to further our understanding of the activity of Zw3 in
vivo, and the mechanism of regulation by Wg signaling. Dr. Siegfried will take
advantage of the powerful techniques available in Drosophila, and take a
combined approach of molecular biology, biochemistry and genetics.
Her preliminary studies have demonstrated that over-expression of
Zw3 leads to a block in the endogenous Wg signaling pathway, suggesting
that high levels of Zw3 can saturate the normal mechanism of Wg regulation.
What this mechanism is remains unclear. However, the fact that expression
of rat GSK-3b can rescue zw3 mutant embryos indicates that this mechanism
is shared between Zw3 and GSK-3b. In an effort to identify shared regions
of potential regulation, she has determined the phylogenetic relationship
between Zw3, vertebrate GSK-3b and vertebrate GSK-3a, a closely related
protein to GSK-3b which, nonetheless, is unable to rescue zw3 mutant
embryos. These analyses have suggested that the amino terminal domain of
Zw3 and seven residues within the kinase domain which are conserved between
GSK-3b and Zw3, but differ from GSK-3a, may be important for normal
activity in vivo.
She proposea to test this hypothesis by site directed mutagenesis and
expression of mutant proteins to determine critical residues for catalytic
activity and regulation. These mutant forms of Zw3 will be expressed in
transgenic flies and activity of mutant proteins will be assayed by the
ability to rescue zw3 mutant embryos and for retention of Wg regulation.
The mutant forms of Zw3 will be also tested in cultured imaginal disc cells
which are Wg sensitive and recapitulate the modulation of Armadillo seen in
vivo. She will determine the kinase activity of mutant proteins, test if
they can modulate Armadillo protein levels in vivo, and determine their
sub-cellular localization. Finally, she will design genetic screens to
identify second site suppressors or enhancers of a Zw3 over-expression
phenotype which should identify proteins which interact with Zw3, including
novel components of Wg signaling.